Acqusition of a Tandem Mass Spectrometer for High Mass MS/MS Biological Studies

A tandem double focusing mass spectrometer will be acquired to be used in biochemical and biophysical studies on cellular function; the tandem mass spectrometer or MS/MS will form part of the instrumentation available in the University of California, San Francisco, Mass Spectrometry Facility, and will also be available as part of the structural biology effort at the University. The research to be enhanced by access to the new instrument will include unresolved structural issues including the delineation of C- terminal peptide sequences, the molecular nature of post- translational modifications of proteins, the organization of membrane bound glycoprotein receptors, and generally in studies on post translational modification of proteins such as glycosylation and phosphorylation. MS/MS data will complement and confirm data from protein sequencing, DNA sequencing, and other macromolecular and instrumental analyses.